MRI: Acquisition of a Distributed Computing Cluster for Multidisciplinary Research, Research Training, and Education at Austin Peay State University

Proposal #: CNS 07-22890
PI(s): King III, B. Alex
Taylor, Jamie R.
Institution: Austin Peay State University
Clarksville, TN 37044-0001
Title: MRI/Acq.: Distributed Computing Cluster for Multidisciplinary Research, Rsch Training, and Educ

Project Proposed:
This project, acquiring a versatile high-performance computing cluster that will enable multi-disciplinary research, services physics and astronomy, chemistry, computer science and information technology, and mathematics. The requested equipment consists of a computer cluster (16 nodes, each two dual-core processors), three control nodes (1 master and two I/O nodes), a RAID storage subsystem, a tape drive, and necessary compilers and computational software. Research projects involve:
. Data mining of large astronomical databases,
. Coherent synthesis of high-harmonics,
. Understanding of noncovalent assembly of macromolecules.
. Application of parallel techniques to traditional applied mathematical methods, and
. Tension supported truss systems (tensegrities).

Broader Impacts: The instrument creates new opportunities for undergraduate research, contributing to train undergraduates in the use of high-performance cluster technology. Undergraduate capstone projects will be directed in Computational and Numerical Methods and Computer Science. The facility might enable students to perform graduate studies in applied sciences.